Spectroscopy of, and Dynamics Within, Atom.(Rare-Gas)n and Atom.(Molecule)n van der Waals Complexes

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Breckenridge will examine the spectroscopy and dynamics of van der Waals clusters of the type MXn, where M is an atom, typically a Group II, III or IV metal, and X is a rare-gas atom or a molecule. The complexes will be made in a supersonic jet and will be characterized by laser-induced fluorescence (LIF), resonant two-photon photoionization spectroscopy (R2PI), and laser pump-probe `action` spectroscopy. One goal of this research program is to understand better the nature of electronic interactions between atoms and C-H bonds in molecules as a function of atomic electronic state. Particularly interesting will be the transition region between physical and chemical interactions. One application of this work is as a model for catalytic C-H bond activation at solid metal-oxide sites.